TC: Medium: Collaborative Research: Securing Concurrency in Modern Systems

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Concurrency-related vulnerabilities are pervasive in modern computing
systems. Concurrency exploits include time-of-check-to-time-of-use
(TOCTTOU) race conditions in file systems, attacks on signal handlers,
and evasive malware that uses concurrency to escape sandboxing
mechanisms. As processors feature ever more parallelism, and
computers process more of our sensitive data, defending against
concurrency attacks is a key challenge for the coming decade.

The first goal is to protect legitimate applications from concurrency
attacks when they access system resources (e.g., prevent TOCTTOU
attacks on file accesses and exploitable race conditions in signal
handlers). The objective is to provide application programmers with
mechanisms and policies for synchronizing access to system resources
so they can avoid unintentional vulnerabilities.

The second goal is to provide strong confinement of untrusted code in
the presence of concurrency, i.e., blocking intentionally malicious
behavior. Today's malware abuses concurrency mechanisms to bypass and
circumvent containment mechanisms like reference monitors and system
call wrappers. Providing robust system support for containing
malicious code is a critical challenge in intrusion detection and
prevention.

Modern computing systems fundamentally depend on concurrency for their
performance and functionality. Making sure that concurrency is used
securely is essential for building a trusted cyber infrastructure.
This research will have a significant impact on the practical
development of secure software, and enable security-critical
applications to realize the performance benefits of today's highly
parallel systems.